Upgrading of a Junior Level Modern Physics Laboratory

This award is made as part of the Instrumentation and Laboratory Improvement program. This program funds innovative new projects for undergraduate physics laboratories. The Principal Investigator of this project is Dr. Pifer of Rutgers University, New Brunswick.